Trajectory Networks in Human Motion Processing

The ability to perceive an object's motion is essential to our
interacting with objects, including avoiding objects that are about to
collide with us. In addition, our ability to predict where an object
will emerge after traveling behind another object (occluder) depends
upon our ability to accurately perceive the object's motion trajectory.
This project is designed to better understand how the human visual
system processes trajectory motion information. Several experimental
approaches will be used to study trajectory motion processing. The
accuracy of observers' speed and direction judgments of a target object
will be measured and the effects of other moving objects (motion noise)
on those judgments will be determined. How accurate observers can
determine where an object, moving on a straight trajectory, will emerge
from behind an occluder will also be measured. How this performance is
affected by the length of time the object is hidden and the distance
that the object travels while hidden will be determined. The same
information will be obtained for objects moving on curved trajectories.
It is expected that objects moving in similar directions and speed will
have a large detrimental effect on judgments of a target object's motion
while objects with dissimilar motions will have little effect. It is
also expected that the if a moving object is hidden behind an occluder
for an extended period of time and travels a large distance, predictions
of where it will emerge will be poor. In addition, curved motion
trajectories should make performance even worse. This project will help
scientists better understand motion perception and how the brain
processes trajectory motion information.